Research Initiation: Acoustic Position Sensing for Robotics

The objective of this research is to study the merits of acoustic positron sensing methods and to assess their usefulness as an absolute positron sensor for robotic manipulators. Basic methods for inferring distance using an acoustic source and a detector include measuring: traverse time for pulse from source to detector (flight time), phase shift between source signal and detected signal, frequency shift between source and detector if one or both are moving (Doppler effect), and difference tone. Possible acoustic source types include pulse trains, constant frequency signals, linearly varied frequency signals, and pulses of constant or varied frequency. The research will investigate these source types and measurement methods for the case of mutiple sources mounted on the manipulator of a robot and multiple detectors in the surrounding environment. The object is to produce a positron and orientation sensing system suitable for robot control.